Urban Systemic Initiatives One Year Self-Study Grant Proposal

9353079 Edwards The Dallas Independent School District, in partnership with the City of Dallas and its diverse communities, seeks to implement a one year self study/planning grant which will result in a plan for systemic change in science, mathematics and technology education. Ten site-based School Centered Education (SCE) planning groups will meet by area to conduct area self studies. Concurrent meetings of identified stakeholders will assess the needs of higher education, technical education and the workforce. The groups will meet to identify and develop strategies that will result in an increase in student enrollment and achievement in mathematics and science classes and successfully impact those entering college and the workforce. Recommendations from these groups will form the basis of a comprehensive plan for systemic reform in the Dallas Independent School District. ***